Boron-Modified Polycyclic Aromatic Hydrocarbons with Low Band Gaps, Dynamic Reactivity, and Stimuli-Responsive Properties

Dr. Frieder Jaekle of Rutgers University - Newark will synthesize next-generation organic π-conjugated materials that are endowed with boron-nitrogen Lewis pairs (LPs) and study their fundamental physical properties and chemical reactivity. Organic π-conjugated materials are of prominent interest as semiconductors for use in organic electronics, sensing, imaging, sensory, and stimulus-responsive materials. Because of its electron-deficient character, tricoordinate boron acts as an electron pair acceptor when combined with amines, generating B-N LPs. By functionalizing polycyclic aromatic hydrocarbons (PAHs) with B-N LPs, their electronic structure and optical properties can be judiciously altered. The new fundamental insights gleaned will guide future applications of these boron-doped organic semiconductors. The project will also prepare undergraduate, graduate, and postdoctoral researchers for the workforce by providing advanced training in a highly interdisciplinary, collaborative research environment encompassing modern synthesis, state-of-the-art characterization techniques, and computational approaches. In addition, outreach programs with local high schools focused on state-of-the-art materials chemistry will be organized to promote interest in STEM careers.

The overarching goal of this project is to develop π-conjugated materials based on acenes that are functionalized with B-N Lewis pairs (LPs). In one direction, acenes are modified with multiple B-N Lewis pairs, and the effects of π-extension on the electronic structure and photophysical properties are examined in detail. A second direction explores their reactivity in pursuit of thermo- and mechanoluminescent materials. In a third direction, PAHs are incorporated into macrocycles that are expected to combine desirable emissive properties with stimuli-responsive host-guest properties. Overall, by advancing the synthesis of B-N LP-fused acenes and studying their optoelectronic properties and reactivity, new materials are anticipated to emerge with ultra-low HOMO-LUMO gaps, absorptions/emissions reaching far into the near-infrared, stimuli-responsive behavior, and shape-shifting characteristics that enable triggered uptake and release of guest molecules.